Information Technology and the Productivity of Professional Workers

The purpose of this study is to 1) provide a large scale organizational test of an extended version of the Davis, et al Techonology Acceptance Model (TAM) (Davis, F., Bagozzi, Warshow,P., "User Accepatace of Computer Technology: A Comparison of Two Theoretical Models.: Management Science, vol. 35,no.9(Aug. 1989, pp.982-1003) and 2) to determine the extent to which the deployment and use of personal computer workstations leads to improved individual and organizational productivity. The research involves a study of the antecedents use of a stock broker's woukstation system and the subsequent impacts on individual and branch office porductivity as related to the workstation's use or non-use. The research model is drawn and extended from a model porposed by Davis, et al (1989). The research design includes a longitudinal study with groups of offices implementing the new system compared against control groups with the system. The controlled research design helps to determine the impact of the new technology on individual and group productivity using economic outcome variables.